Enzyme-Powered Active Particle Populations with Distributed Functionality

Non Technical Abstract
At present, research on active particles is focused on the ability to carry and release cargo. While these abilities are of great importance in moving the field forward, biotechnological applications of active particles require them to recognize and move towards specific biomarkers and deliver a payload (e.g., drug) on demand. Thus, the particles need to be equipped with multiple functionalities, such as the targeting and delivery. There is, however, no requirement that all the required functionalities reside on the same particle. Indeed, the design of particles can be greatly simplified by having different populations of communicating particles, each having its own functional response. Our proposed work involves designing intelligent systems involving particle populations that perform different tasks and communicate with each other. For example, in a swarm-based detection and response system, two groups of active particles could take on complementary roles: seeker particles would identify a target through chemical gradients and release signals to attract delivery particles. The delivery particles, in turn, detect the signal from the seekers and converge on the target location to deliver their payload. The project will enable new strategies for biosensing, as well as synthetic nano/microrobotic systems capable of controlled responsive interactions. These efforts will help maintain U.S.’s lead in nano/microtechnology, enabling an entirely new generation of responsive materials with potential uses in imaging, remote sensing, targeted delivery, chemical actuation, and signaling networks with diverse applications in biotechnology, materials science, and beyond. Thie research will train the students in cutting-edge experimental and modeling techniques employed in chemistry, chemical and biomedical engineering, materials science, as well as nanofabrication. It will contribute to workforce development in biotechnology and microrobotics. To communicate the excitement of science, both the PI and his graduate students will give regular presentations to high school students, as well as to the general public at science cafes and pub nights. The PI will also collaborate with specialists in visual and digital media to further disseminate the results of the work.

Technical Abstract
The proposed work encompasses the design of populations of active particles with distributed functionality that communicate to collectively perform complex tasks. The particles are self-powered through autonomous energy harvesting and communicate through chemical gradients. Building particles with specialized functions that communicate with each other will greatly simplify the design of intelligent functional assemblies, since it obviates the need to design-in all the functionalities into a single particle type. The project will lead to the formulation of design rules for using active particle swarms to target specific locations in space by harnessing chemical gradients to direct nanoparticle motion. It would enable new strategies for biosensing and drug delivery, as well as synthetic nano/microrobotic systems capable of controlled responsive interactions. These efforts will help maintain U.S.’s lead in nano/microtechnology, enabling an entirely new generation of responsive materials with potential uses in imaging, remote sensing, targeted delivery, chemical actuation, and signaling networks with diverse applications in biotechnology, materials science, and beyond. Thie research will train the students in cutting-edge experimental and modeling techniques employed in chemistry, chemical and biomedical engineering, materials science, as well as nanofabrication. It will contribute to workforce development in biotechnology and microrobotics. To communicate the excitement of science, both the PI and his graduate students will give regular presentations to high school students, as well as to the general public at science cafes and pub nights. The PI will also collaborate with specialists in visual and digital media to further disseminate the findings.